Construction and Properties of Unusual Molecular Systems

The foci of this research are threefold. First, the preparation of structurally unusual ligands capable of bifacial metal ion complexation and the stereocontrolled synthesis of open-chain linear arrays well suited for metal ion transport will be carried out. Second, the scaffolding capacity of the squarate ester cascade will be adapted to natural product synthesis. Third, inexpensive, optically pure terpenic ketones will be dimerized to afford catalysts for asymmetric transformations. The student training afforded by the project should enhance the scientific infrastructure.

With this Renewal award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Leo A. Paquette of the Department of Chemistry at Ohio State University. Professor Paquette will focus his efforts in three areas. First, spiroether chemistry will be used to prepare synthetic ion channels. Second, the squarate acid cascade process will be used to synthesis natural products and, third, chiral ligands for use as catalyst in a broad range of organic transformations will be constructed from readily available terpene natural products. The research has the potential to have a broad impact in the pharmaceutical and agricultural industries.